U.S.-Nigeria Dissertation Improvement Research on Barriers to Coastal Environmental Information Transfer: A Case Studyin Nigeria

This proposal requests funds to permit Mr. Christopher A. Shiyam, a Nigerian graduate student at the State University of New York College of Environmental Science and Forestry, to pursue dissertation research in Nigeria under the direction of Dr. Richard C. Smardon, his faculty advisor, on the barriers to coastal environmental information transfer in Nigeria. A study will be made in Nigeria on coastal environmental problems, the status of the environmental information system, a methodology for identifying barriers to information transfer from research to policy, and information utilization by decision makers. Guidelines for integrating coastal environmental information into the decision-making process in Nigeria will be developed. In contrast to the industrialized nations, Nigeria, like most other developing countries, lacks the data and information infrastructure as well as the legal structure for the systematic collection and use of environmental information. The absence of information and barriers to information flow and use are impediments to integrated resource management in Nigeria. This research is designed to determine how scientific knowledge influences the decision-making process. A survey will be undertaken to determine how Nigerian research staff members perceive the role of coastal environmental information in decision making and barriers to information flow and use. This project is relevant to the objectives of the Science in Developing Countries Program which makes small grants that are intended to advance the international exchange of scientific knowledge and to contribute to the scientific infrastructure of developing countries. Developing-country graduate students who are enrolled at U.S. universities may receive support to engage in research on a developing-country problem. Mr. Shiyam has served as a research officer, Forestry Research Institute of Nigeria, Jos, Nigeria, and is highly qualified to undertake this dissertation research project with his faculty advisor.